Algebraic Groups and Applications, International Conference,Hyderabad, India, December 8-18, 1989, Group Travel Award inIndian and U.S. Currencies

Description: This project supports travel of twelve U. S. scientists to an international conference on " Algebraic Groups and Applications" to be held at the University of Hyderabad, India. Topics to be covered include: 1. Finite dimensional group; 2. Infinite dimensional groups and 3. General surveys. The conference will be for 10 days with 6 lectures per day. Participants are expected from the U. S., the U. K., France, U.S.S.R., Japan, the Netherlands, Switzerland and from Italy in addition to Indian lecturers and graduate students. The lectures are expected to be published as a book or as a special volume of a journal. Scope: The conference has two main objectives: to present state of the art in the area of algerbraic groups to young scientist and students in India, and to to provide a forum for exchange of information and ideas between Indian, U. S. and other scientists; and to consider areas for further research to be done jointly or independently. These objectives are expected to be met through the well planned conference and the excellent selection of participants. The meeting is expected to increase U.S.-Indian collaboration in the field of mathematics.